Summer Undergraduate Research Program in Nuclear Physics at the Indiana University Cyclotron Facility

9423896 Olmer The support of the "Research Experiences for Undergraduates Site" at the Indiana University Cyclotron Facility will be renewed. This Site recruits students nationally, who will participate in a program of research and instruction in topics in nuclear physics. ***